Acquisition of a Multi-User Laser Scanning Confocal Microscope

Funds are requested for the purchase of a multi-user laser scanning confocal microscope and associated workstation to be housed in the Electron Microscopy Facility of the Department of Biological Sciences, University of Maryland Baltimore County. No such instrument is currently available on the Catonsville Campus of the University of Maryland System. The applicants have been using traditional epifluorescence microscopy, electron microscopy and fluorescent activated cell sorting for the study of cell structure, function and problems in spatial and temporal localization of developmentally regulated macromolecules. The availability of a laser scanning confocal microscope would substantially enhance these research efforts by improving resolution in the x-y plane by a factor of 2 and in the Z axis by ~1.4x. Additionally the ability to take optical sections and do 3-D image reconstruction and analysis will enable us to address aspects of these problems which had previously been impossible. All of the applicants hold federal grants for the support of their research and several are recipients of NSF grants. The instrument will consist of a Bio-Rad MRC 1000 confocal laser scanning unit mounted on a Zeiss Axiovert Inverted Fluorescence Microscope fitted with phase and Nomarski optics in order to overlay the confocal fluorescent images on the brightfield images. Image collection and control of the microscope will be managed by a 486 (or appropriate upgrade) computer running the Bio-Rad CoMOS software. The data will be stored on an optical disc drive. The 486 computer will be hooked by an ethernet link to the department Silicon Graphics Indigo Computer. Vital Images Volume Microscope Workbench software will be loaded on the SGI computer for doing the 3-D image analysis. A network printer will be hooked by ethernet link to both computers so that digitalized images can be printed for publication and for preparation of slides. The instrument will be administered by a committee consisting of the P.I. and the major users. Dr. Terry Viancour who has extensive experience with enhanced video microscopy and image analysis has agreed to be the faculty supervisor responsible for insuring that all users are trained in the proper operation of the instrument. The instrument will be a part of the Biological Sciences Electron Microscope facility. This facility is staffed by a full time research associate, Mr. Phillip Rutledge. The Department of Biological Sciences will commit 10% of Mr. Rutledge's time to overseeing the day to day operation of the laser scanning confocal Microscope. The microscope will be made available for use by all members of the University community, including post-doctoral fellows, graduate and undergraduate students. While primarily a research instrument, its use will be incorporated into an advanced course on microscopy and into the research projects of the graduate and undergraduate programs thus providing increased student exposure to this powerful technology. In recognition of the central role that research plays in the teaching mission of the University and the importance of exposure of students in the biomedical/bioengineering sciences to "state of the art" technology the University of Maryland Baltimore County has committed matching funds to aid in the purchase of this equipment should the grant be funded.